Infrared Camera Enhancement

This award supplies funding to provide an existing near-infrared camera with state-of-the art focal plane array detectors. The instrument was built to ensure that astronomers at the Observatories of the Carnegie Institution of Washington (OCIW) have the best possible near-infrared array camera for general use between 1 and 2.5 um. OCIW is a partner is a consortium that has a contract with the Rockwell Science Center to produce a series of HgCdTe array detectors. The funding will be used mostly for hardware items -- the detectors, some electronics, and a computer. OCIW will cover all the salary money needed to complete this project. The major scientific programs to be carried out with the camera in the next several years concern primarily a long-term study of stellar populations in distant galaxies in clusters, direct imaging of the environs of Young Stellar Objects, morphologies of high redshift (z > 2) radio galaxies, and infrared photometry of Cepheids.